Conference on Molecular Biology of Hepatitis B Viruses; ColdSpring Harbor, NY; September 28 - October 1, 1987

This award is for partial support for the annual meeting on Hepatitis B Viruses. Topics to be covered include strategies of genome replication, tissue specific control of transcription, and structure and function of viral gene products. The meeting will consist of seven sessions of 10 oral presentations and two poster sessions collectively dealing with a variety of highly relevant topics.